SGER: Forced Current Sheets: Equilibrium and Dynamics

This proposal is for an SGER program. The proposed research represents preliminary work on untested and novel ideas and ventures into emerging research areas, which is two of the criteria that must be characterize by such grants. ***